Exploring the Chemistry of ansa-Chromocene Complexes: Their Fundamental Reactivity and Potential Application as Homogeneous Catalysts

Dr. Pamela Shapiro, Department of Chemistry, University of Idaho, is supported by the Inorganic, Bioinorganic and Organometallic Chemistry Program of the Chemistry Division to (i) explore the chemistry and possible catalytic applications of new (bent) ansa-chromocene systems to polymerization processes, (ii) modify the ansa-metallocene ligand framework to potentially improve the catalytic properties, and (iii) examine the behavior of these systems under high hydrogen, ethylene, carbon monoxide (and others) gas pressures. The latter objective will involve a collaboration with scientists at the Pacific Northwest National Laboratories (PNNL).

Two benefits will accrue from this NSF support: (1) development and characterization of new, potentially useful ansa-metallocene homogeneous catalysts to improve certain polymerization processes, and (2) expose graduate and undergraduate students and post-doctoral associates of the University of Idaho to cutting-edge technology and learn state-of-the-art techniques through a collaborative partnership with the scientific staff of the Pacific Northwest National Laboratories.